SBIR Phase I: Liquid Metal Display

9860512
Rubicon will explore the feasibility of using liquid metal as a light valve in display applications. By varying the applied electric field, a liquid metal drop can change between less light blocking shape and more light blocking shape, thereby controlling the light passing through the device. This light valve promises higher light transmittance, no angle dependence of view, less heat generation and simpler construction. It will compete with liquid crystal technology in the flat panel display market, and especially in the projection display market. The Phase I activity will demonstrate a prototype light valve, verifying its operating principles, and optimizing performance.